Computer Assist Programming and Design

This computer numerical control curriculum development project is centered around the qualitative improvement and expansion of a comprehensive undergraduate curriculum through the integration of classroom and laboratory instruction. Essential to this undertaking are state-of-the-art computer numerical control workstations that are used in conjunction with previously existing lathe and milling machines. This equipment permits students to experience the practical application of theories presented in the classroom. Principles of numerical control are now taken from concept to final product while exploring the mathematical foundations underlying the control and machining processes. In this way principles and technological applications are combined to strengthen the students understanding of automated machining for improved production methods, parts quality and safety. The award is being matched with a greater amount (132 percent) by the principal investigator's institution.